An Integrated Electrochemical/Computer System in Quanti- tative and Instrumental Analysis Laboratories

This project will upgrade the electrochemical instrumentation and computer facilities in two undergraduate analytical chemistry courses: "Quantitative and Instrumental Analysis" and "Instrumental Analysis." The first is a sophomore/junior-level course required for chemistry, biochemistry, and medical technology majors. The second is a senior level course required for chemistry majors. A microprocessor-based electrochemical instrument will replace antiquated analog equipment. This commercially available system is constructed around a cybernetic potentiostat and has control software for a variety of electro- chemical techniques. An external personal computer is interfaced with this instrument as a data station for mass storage and data manipulation. This system enables students to perform modern electrochemical experiments and to learn the techniques of digital data acquisition and computerized data analysis encountered in today's academic and industrial laboratories.